Experiments in Coherent Optics and Holography

The equipment provided here is needed to introduce a new series of experiments. As part of an on-going development of a junior-year research-grade laboratory physics course. These experiments are to center upon coherent optics and holography. They will be added to a recently developed repetoire of experiments in the course which currently includes experiments on pulsed NMR, gamma ray spectroscopy, Compton scattering, quantum oscillations, tunneling and particle lifetimes. This laboratory serves ten to twelve majors a year. This laboratory serves a vital function for preparing them for a graduate career.